Postdoctoral Research Fellowships in Chemistry

Dr. Joseph Noel has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Noel's doctoral degree was from Ohio State University under the direction of Professor Ming-Daw Tsai. Dr. Noel intends to continue research at Yale University under the sponsorship of Professor Paul Sigler. Dr. Noel's area of postdoctoral research will be the elucidation of the structural basis for enzymic catalytic mechanisms as revealed largely by x-ray crystallography. He will be crystallizing the membrane photoreceptor protein, rhodopsin. The experience gained from this study should facilitate longer-range studies of the structure, chemistry and evolution of chorismate mutase. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.